Presidential Young Investigator: Randomized Geometric Algorithms and Data Structures

This project investigates the possible use of randomization in the design of algorithms and data structures for geometric problems that involve a large number of objects, with a particular emphasis various aspects of the so-called higher-dimensional point problem. The goal is to design data structures that permit the rapid location of a query point in a polyhedral partition of d- space. Various range query problems which consider possible between preprocessing time, space usage, query time, and are also investigated.